MRI/RUI for Equipment Acquisition to Increase Network Engineering Laboratory Capacities for Hispanic Engineering Students

Impact: The Polytechnic University of Puerto Rico's MRI/RUI for Equipment
Acquisition to Increase Network Engineering Laboratory Capacities for Hispanic Engineering
Students will significantly impact three institutional goals: (1) Improving access to and
increasing the use of modern research and research training instrumentation for our Hispanic
students and faculty in Computer Engineering; (2) lessening the technological and research gap
experienced by the institution's 1,330 Hispanic students in Electrical Engineering and directly
over 300 Hispanic students studying Computer Engineering; and, (3) integrating education and
research in Computer Engineering. These three institutional and departmental goals are
consistent with the NSF-MRI program and the RUI program. The Hispanic faculty to be
impacted includes 19 full-time EE faculty members and specifically 6 faculty members in
Computer Engineering.
Research: The research activities utilizing the Network Engineering Laboratory will be
centered on Open Learning Objects and Inner Metadata. These include the design of Open LO
(OLO), which is based on Open standards, mostly XML markup languages and their related
tools. It exposes an interface to export the results of LO-to-Learner interaction, and for LO
adaptation. Inner Metadata is the collection of layered meta-data mechanisms that are used to
describe the OLOs, their adaptive features, and the Learner interaction tracing. LO objects
designed according to this architecture still retain the encapsulation and modularity required to
abstract those implementation aspects of a LO that researchers can investigate for future
enhancement and growth, yet they provide a systematic and consistent interface for extracting
the results of the interaction with the Learner and for LO adaptation.
Intellectual Merit of the Proposed Activity: The proposed research project advances
knowledge and understanding within the field of Computer Engineering and explores creative
concepts. Several organizations most notably the IEEE and the IMS Consortium, have proposed
standards for describing Learning Objects. While these efforts substantially advance the goals of
interoperability, they fall short at addressing the need for accessibility to the internal composition
of the Learning Objects (LO). Under present standards, the LO remains an opaque entity from
which valuable information cannot be easily gleaned or harvested, nor introduced or adapted.
Broader Impact of the Proposed Activity: Research in this area will fully integrate
education and research activities by utilizing the IDEAL eLearning environment as a platform to
test and explore these and similar issues from a unique perspective; that of a potentially very
large learner pool as available through the web. The research activities to be undertaken in the
enhanced Network Engineering Laboratory will equally serve to expose PUPR to collaborate in
Computer Engineering research with other engineering colleges and universities in the United
States.